ITR: Collaborative Research: SPARTA: Static Parametric Timing Analysis to Support Dynamic Decisions inEmbedded Systems

Mueller
Whalley
Healy

Embedded systems with temporal constraints rely on timely scheduling
and a priori knowledge of worst-case execution times. Static timing
analysis derives safe bounds of WCETs but its applicability has been
limited to hard real-time systems and small code snippets.

This research addresses these limitations of timing analysis for
embedded systems. It contributes a novel approach to program analysis
through parametric techniques of static timing analysis and provides
innovative methods for exploiting them. The proposed techniques
express worst-case execution time as a formula with the following
benefits. First, static timing analysis becomes applicable to a wide
class of embedded systems with variable loop bounds. Second, the
benefits of parametric timing analysis provide new opportunities for
dynamic and flexible scheduling decisions. Third, timing abstractions
through the parametric approach enable the analysis of much larger
programs than in the past. Finally, the techniques of static timing
analysis, currently constrained to hard real-time system, become
applicable to a much wider range of embedded systems with soft timing
constraints. The broader impact is to increasingly expose students to
embedded systems and to provide essential temporal assurances, which
are a prerequisite for applying the results of hard and soft real-time
scheduling for reliable embedded systems of national and economic importance.